Novel Optical Techniques for Studying Polymer-Metal Interfaces: Surface Second Harmonic Generation

This Small Grant for Exploratory Research represents the application of a new approach to a "mature" research area: vinyl polymerization. This research will characterize the gas phase photopolymerization of vinyl monomers onto metallic substrates as a function of processing conditions. Solvent- free, gas phase photopolymerization shows promise in creating defect-free, uniform thin films with excellent electrical and optical properties for commercial applications such as protective coatings and electrical insulators. The issues to be considered in this work are how the final film quality is related to the interface and the polymerization mechanisms and kinetics, and the characterization of the gas phase reactions. This research will develop surface second harmonic generation to characterize the dynamics at the metal/polymer interface. Surface second harmonic generation techniques are powerful methods for probing surfaces, and have general applicability in examining reaction dynamics at many surfaces and interfaces. The ultimate goal of the work is to show that second order nonlinear optical techniques such as surface second harmonic generation will be excellent methods for multi-disciplinary studies of many surface phenomena including reaction, adsorption, and adhesion. This initial work specifically addresses polymerizations of well characterized vinyl monomers onto well characterized metallic substrates in order to validate the use of surface second harmonic generation as an analytical technique to perform real-time characterization of the surface dynamics. There is a strong need to develop novel methods for characterizing surfaces and interfaces, particularly methods that are efficient, have high resolution, and can be used to monitor in-situ processing.